Establishment of Vassar College Connection to NSFNET

This award enables Vassar College to connect to NSFNET through a 19,200 bit per second link to NSFNET through the mid-level network NYSERNet. Access to NSFNET provides the faculty and students with access to supercomputers, data archives, a variety of network gateways, automated library catalogs, and a wide range of software. Primary applications include file transfers, electronic mail communication between local and remote researchers, and remote login to and use of supercomputers and other research facilities.